Surface Dynamics on a Subangstrom and Subsecond Scale from Scattering and Recoiling Imaging Spectrometry (SARIS)

9321899 Rabalais This research project, which is focussed on the development of a new method for the structural analysis of solid surfaces, is supported by the Analytical and Surface Chemistry Program. Scattering and Recoiling Imaging Spectrometry (SARIS) will be developed as a method for providing structural information about solid surfaces on a time scale consistent with some important dynamic processes. This method is based on the shadow cone techniques previously developed in the Rabalais laboratory, and the primary goal of the research project is the design and construction of an instrument which can be used for SARIS studies. The technique will then be applied to a number of important thin film growth and surface reaction processes, with impact on the understanding of electronic materials chemistry. %%% The ability to obtain surface structural information on a time scale compatible with electronic device growth and processing is a crucial ability for the semiconductor industry. The results of this research project will enable the development of analytical instrumenation and methodology which will address this need. ***